Ship Operations

The Nutrient Enhanced Coastal Ocean Productivity program (NECOP) of NOAA will use the R/V LONGHORN simultaneously and in collaboration with the R/V PELICAN for 30 days in the general area of the mouth of the Mississippi River (Southwest Pass) and the adjacent shelf waters. Several transects of stations across the shelf will be occupied along the Louisiana shelf and intensive biological process sampling will occur in the river plume and hypoxic areas ranging in depth from 5 meters to 150 meters. Special sampling of river plume fronts and other surface features will occur when encountered using standard hydrocasts and/or underway surface mapping. A minor amount of sampling time may be allocated to collection of samples in the lower Mississippi River, Atchafalaya Bay, and the Mississippi shelf canyon. The ship operation will consist of CTD/rosette hydrocasts, net tows, and sediment boxcoring. Special deployments of in situ zooplankton samplers and moored current meter and in situ instrumentation arrays will occur at a few selected sites near the river mouth and nearby shelf. Immediately following the NECOP cruise, R/V LONGHORN will load in Cocodrie, Louisiana, to begin work on the Gulf.Cet program. Gulf.Cet is a study of the Distribution and Abundance of Marine Mammals in the North Central and Western Gulf of Mexico by Dr. William Evans. The work is being coordinated under contract to the Minerals Management Service with funding through the Texas Institute of Oceanography, Texas A & M University. The study area will be covered by 14 transect legs in the Gulf of Mexico offshore from about the Louisiana/Alabama border to the Texas/Mexico border. High powered binoculars will be used for the visual part of the survey and a specially modified hydro acoustic streamer will be used for acoustic detection. A cruise of fifteen days is schedule for each quarter. The first quarter follows NECOP; the second quarter will be in late August or early September; and the third quarter is tentatively scheduled for November (a final quarter will fall in calendar 1993). Two weeks in the first part of June will be devoted to work along the Texas/Louisiana Coast for the NSF project, Stable Carbon and Nitrogen Isotopic Compositions of Selected Organic COmpounds by Dr.s M.C. Kennicutt (Texas A & M University), S.A. Macko (U. of Virginia.), and R.R. Bidigare (U. of Hawaii.). IN addition to boxcoring and hydrowinch work, this project will also utilize R/V LONGHORN as a mother ship, with work taking place off Zodiacs and other small boasts. Two or more student cruises, for The University of Texas at Austin's Department of Marine Science, to be scheduled during the summer months, constitutes the remainder of the schedule. Traditionally the R/V LONGHORN has been able to respond on short notice to last minute requests for shorter cruises within the Gulf of Mexico during open periods of her schedule. We are prepared to schedule some additional work if requested.